Industry/University Cooperative Research Activity: Microreactors Simulating Large Fluid Beds

Narrative: The principal investigators propose to develop a family of novel microreactors that could simulate the reaction kinetic performance to be expected in commercial-scale fluid beds of powdered catalysts. Design of the microreactors will exploit a newly discovered phenomenon: about 0.5 mm layer of fluid cracking catalyst (FCC) powder on the floor of a horizontal duct of rectangular cross-section, vibrated vertically at about 25 Hertz with an amplitude of several milimeters, appears to enjoy intimate contact with "supernatant" gas flowing laterally above the powder. Cold-model experiments would study the dispersion of sulfur hexafluoride (SF6) gas in the ducts. Variables in experiments would be humidity (causing SF6 adsorptivity to vary), degree of solid back-mixing, and, in the models with flow of powder, the ratio of flow of solid and gas. Later, a hot microreactor would be built for kinetic studies of a catalytic reaction with once-through flow of solids. The ultimate objective would be development of a family of microreactors for hot kinetic studies with capabilities for commercial size fluid bed reactors.